Opening the Genetics Gateway with Automated Support for Student Thinking

Genetics is a fundamental unifying theme of biology. The Human Genome Project and
advances in genetics and biotechnology are revolutionizing biology, medicine and industry.
However, genetics is an intimidating challenge for college students across the full range of post-
secondary institutions and the growing demand for genetics education outstrips the supply of
qualified teachers.
We are developing a genetics cognitive tutor to support active problem-based
learning in undergraduate genetics courses and make genetics accessible to more students.
Cognitive tutors are an educational technology that speeds learning and yields large achievement
gains compared to conventional instruction by providing students "just-in-time" problem-solving
help. Cognitive Tutor mathematics courses are currently in use by more than 125,000 students in
over 700 middle and high schools. The genetics cognitive tutor is building on past successes in
tutoring quantitative reasoning and using the cognitive tutoring technology in novel realms of
scientific inference and experimental design.
We are pilot testing and evaluating cognitive tutor lessons in six universities representing a
diverse student population, and including large public universities, private research universities, a
small liberal arts university and an historically black university. Pilot testing includes formative
evaluations of tutor effectiveness and student learning rates. Summative evaluations of
achievement outcomes are being conducted by Carnegie Mellon's Office of Technology for
Education and Eberly Teaching Center. Cognitive tutor dissemination activities are focusing on
summer workshops and conference workshops, and are facilitated by a project advisory
board and Carnegie Mellon's Office of Innovation Transfer.